Graduate Honorable Mention Award: Belinda Yeomans

This special minority award will give Ph.D. student Belinda Yeomans additional flexibility in pursuing her graduate studies and research initiation in political science. This award will strengthen minority research participation in this area.